Soot Formation in Confined Turbulent Diffusion Flames

The effect of pressure on the sooting of flames will be studied in a variable pressure gradient wind tunnel. Soot will be monitored accurately through sampling and radiation probes, and properties will yield to advanced optical techniques (extinction and scattering). Soot generation and disappearance will be documented as a function of the pressure field and geometry. The possibility to control soot formation by design-dependent pressure fields could be an outcome of this fundamental work. The effect of shear and radiation losses will be included in this study.